Mathematical Sciences: Nonlinear Elliptic Boundary Value Problems

This project will study the solvability of nonlinear elliptic boundary value problems. Main emphasis will be placed in the cases where either the problem is semilinear but the spectrum of the linear part is not known, or the nonlinear part interferes with the spectrum. Recent developments on abstractions of the mountain pass lemma are expected to render information on the issue of existence and multiplicity of solutions for these problems. The problems to be studied are basic questions arising in equations that model problems in areas such as mathematical physics, biomathematics, and chemistry.